SBIR Phase II: A High Speed Low-Cost 3D Ranging System

9623621 Geng This Small Business Innovation Research Phase II project is to study a novel three dimensional (3D) camera concept called the Color 3D Camera. The Color 3D camera, is able to capture 3D images of objects in the scene at camera's frame rate (30 frames per second or faster). Because the system uses only one CCD camera, it eliminates the time consuming and often ambiguous correspondence problem of conventional stereo vision systems. There are no moving parts, nor mechanical scanning mechanisms. The 3D camera is also able to provide normal color 2D intensity images in addition to 3D range images of the scene which facilitates object recognition and sensor fusion tasks in many machine vision applications. The feasibility of the Color 3D camera has been investigated theoretically and demonstrated experimentally during the phase I effort. The design philosophy of the phase II prototype will be to integrate seamlessly system's function modules in a compact printed circuit board equipped with multiple DSP processors. All the image acquiring, image processing and range calculation will be performed on-board so the real-time range images can be produced. Building a seamlessly integrated low cost high speed 3D vision system as a product line of Robotronics, Inc. is a key to commercialize this SBIR research results of the color 3D camera. Such products will make a reliable and inexpensive 3D vision capability widely available to many practical machine vision applications.